The Role of Cavitation in Superplasticity

The objective of this proposed research is to investigate the basic mechanisms by which internal cavities develop during superplastic deformation. Experiments will concentrate on: Zn- 22% Al, Al-33% Cu, a Cu alloy containing Co-rich precipitates, and an Al-Li alloy. The central objectives of this work include: determining the microstructural basis for slow crack growth; examining how microcavities interlink along the tensile axis; determining if a critical strain rate exists for cavity nucleation; and, development of a quantitative cavity distribution measurement procedure. This work will involve extensive scanning/transmission electron microscopy and quantitative metallographic studies.